Engineering Studies of Extremely Theromphilic Archaebacteria

Narrative: Micoorganisms found in aquatic volcanic environments have been isolated and shown to grow at temperatures exceeding l00 C. The characteristic to withstand high temperatures presents interesting possibilities from a biotechnological perspective, such as the production of highly thermostable proteins, unusual metabolic behavior, and new genetic material. A road block to commercialization has been the difficulty in growing and manipulating these organisms on a large scale. This work is focused on the development of protocols and associated bioreactors that can be used for the growth and study of extremely thermophilic archaebacteria. Particular emphasis has been placed on those archaebacteria that are classified as sulfur-dependent extreme thermophiles, and include both the Sulfolobus and Pyrodictium genera. This choice was made because of the potential industrial importance of microorganisms for industrial application.